Laboratory for Information and Decision Systems

9300494 Bertsekas Many operations in design, production planning, and resource management encounter optimization problems, that is, mathematical problems of choosing optimally several factors that affect a productivity index. These are problems of considerable computational difficulty that have been extensively investigated in the last three decades. This research will focus on several such problems that arise often in practice and have a large scale structure, such as a network or a dynamic system structure. Methodological improvements for the solution of these problems will have significant practical impact. The research will aim at the understanding of the performance of existing network optimization, linear programming, and nonlinear programming algorithms, and will develop algorithms with improved performance for both a serial and a parallel computing environment.